ART: Binghamton Excellence in Entrepreneurship and Discovery

This project aims to modernize the research translation model at Binghamton University by shifting from traditional technology transfer and licensing to use-inspired and industry-informed R&D path to commercialization. The project will address key cultural and resource gaps, including limited research community engagement, low awareness and implementation of use-inspired R&D, lack of understanding of the commercialization process, insufficient resources for technology validation and translation, in the innovation ecosystem. Binghamton EXCEED will grow the organizational buy-in and capacity to affect broad institutional change, validating and deploying at scale an updated model of research translation rooted in fostering use-inspired R&D.

The project will pursue stage-specific capacity-building activities to address existing challenges and to 'get', 'keep' and 'grow' the university’s base of research innovators, ground-breaking inventions, research translation outputs, and new ventures. Providing a high-touch and comprehensive support framework across the technology translation pathway, EXCEED will activate the campus research community through one-on-one mentoring as well as events, seminars, and curricular offerings (GET), launch pre-accelerator training and internship programs and accelerate industry outreach to foster use-inspired R&D (KEEP), and provide prototyping and validation funding, as well as startup launch support (GROW).